Engineering Research Equipment Grant: Large Scale Mobile Eccentric Mass Vibrator

This is an equipment award to purchase a large scale mobile eccentric mass vibrator. The vibrator will be used to excite buildings to determine their safety against wind and earthquakes.